Aspen Winter Condensed Matter Physics Conference Aspen, Colorado, January, 1989

The 1989 Aspen Winter Physics Conference will devote one week to Condensed Matter Physics. It will emphasize a balanced combination of theoretical and experimental results of studies on matter at low temperatures.